ACL-Deficient Knee Stability and its Prevalence to Osteoarthritis

0502638
Gonzalez
The project will (1) develop a detailed anatomical musculoskeletal computer model to quantify knee ligament strain, anterior tibial translation (ATT), and intersegmental forces (ISF), (2) develop a sophisticated robot-cadaver knee experimental apparatus used to verify and evaluate the computational model, and (3) statistically assess the deviation between unimpaired and ACL-impaired knee stability parameters.